The Introduction of Fourier Transform Infrared Analysis intothe Chemistry Curriculum

A Perkin-Elmer Model 1640 FT-IR spectrophotometer complete with a diffuse reflectance accessory and a graphics plotter has been acquired. The theory and practice of FT-IR analysis is being incorporated into the introductory organic course as well as five upper division laboratory courses. The instrument is also being used in undergraduate research. Specific course improvements include the enhancement and expansion of IR analysis in organic laboratories, the introduction of FT theory and instrumentation into analytical, as well as the extension of IR analysis to small samples and opaque materials and extensive demonstration of the FT-IR capabilities as both a qualitative and quantitative tool. The grantee is matching the award from non-Federal services.